CRC: Next Generation Aromatics

Gregory H. Robinson, Robert B. King, Henry F. Schaefer, III, Paul von Rague Schleyer and Peter R. Schreiner of The University of Georgia are supported by the Division of Chemistry and the Office of Multidisciplinary Activities of the Mathematical and Physical Sciences Directorate for their interdisciplinary collaboration aimed at significantly advancing our understanding of the concepts of aromaticity and metalloaromaticity. Aromatic compounds have electronic structures containing "closed circuits of mobile electrons" that lead to enhanced stabilities. Their geometries tend to be more regular and the magnetic as well as spectroscopic properties have special characteristics. To study next generation aromatic species, these researchers will explore the possibilities of extending the aromatic M2(GaR)3 chemistry to other elements. These compounds of lead, tin, thallium and indium, including the initial target, Li2(InH)3, will be studied from both synthetic, and theoretical perspectives. A prominent goal will be the synthesis of a truly metallic 6 pi-electron analog of benzene-a Ga6 6- moiety. The role of aromaticity in superconductivity, in transition metal derivatives, on curved surfaces such as Mobius aromatics and in new cyclization reactions will also be studied. Finally, this investigation will explore theoretical methods for evaluating aromaticity in molecular species.

Collaborative Research in Chemistry (CRC) awards are given to interdisciplinary teams of scientists working on problems of broad chemical interest. The emphasis in these awards is on new collaborative modes of research and training.